REU: Undergraduate Field Geology Research in Arizona's Transition Zone

c15 23This project will create an undergraduate research effort in the colorado Plateau and Transition Zone of Arizona that will involve students from Northern Arizona U., Washington U., U. of Massachusetts, Colgate U and Vanderbilt U. Students will make, compile, and interpret geologic maps within the context of a network of ongoing collaborative research projects funded by the NSF and U. S. Geological Survey. They will start as juniors and continue through the following summer as seniors, with graduate students working with them as field supervisors. It is planned that their maps will be published by the USGS or Geological Society of America.